CVPR 2012 Conference Doctoral Consortium

This travel grant supports senior PhD students who are nearing graduation to take part in a doctoral consortium at the 2012 IEEE Conference on Computer Vision and Pattern Recognition (CVPR). The doctoral consortium highlights the work of these up and coming researchers, and pairs each student with a senior member of the computer vision community who serves as their mentor. The mentorship process provides each student with valuable feedback on their research, as well as meaningful career advice as the students move on to the next phase of their professional development. The doctoral consortium event aims to have representation from a diverse group of participants (in terms of gender, ethnic background, academic institution and geographic location). The travel grant ensures participation from a broad range of institutions across the country and gives visibility to a diverse population of students.